EMSW21-RTG, Biodynamics at Boston University

This project will advance the creation and support of a community of scholars, from undergraduate to faculty, working at the interfaces among dynamical systems and biological applications. The three main areas of focus are: 1. Analysis of systems with multiple length and time scales, including applications to pattern formation; 2. Mathematical neuroscience, including analytical methods for working with small networks and reduction of dimension techniques; 3. Gene regulatory networks, including the development of RNA switches, transcriptional bursting and programmable cells. These areas have major applications to issues concerning health and medicine. The project will build on the previous research and training experience of the Center for BioDynamics, co-directed by the Principal Investigator and one of the other senior faculty members. Trainees will be pre- and post-doctoral students who will take part in a wide variety of formal and informal activities, including special seminars, working groups, mini-symposia, laboratory work, journal clubs and social events, which will enable them to acquire the multiple scientific cultures needed to work in a trans-disciplinary manner. The pre-doctoral students will be from the departments of Mathematics or Biomedical Engineering; the postdoctoral associates will be drawn from a wide range of backgrounds, with a focus on applied math. In addition to their research activities, trainees will obtain experience teaching at different levels. Math department faculty and trainees will be involved in the construction of new interdisciplinary curricula for undergraduates in other departments, including Biology; the faculty will mentor the trainees in teaching the new curricula.